Scheduling of Random Processes and Quantum Information

The research addresses problems in two topics: scheduling of random
processes and quantum information theory. Scheduling problems arise in
many areas of computer science. The investigator studies the possibility
of scheduling two random sequences of activities in a way that prevents
certain conflicts between them. The methods applied also advance the state
of the art in percolation theory (a fundamental area of probability theory
and statistical physics). Quantum information theory extends the questions
concerning conditions and methods for reliable transmission of information
to the setting of quantum mechanics. It has applications in cryptography,
and also relates to the promising area of quantum computing. The theory of
description complexity has been useful in clarifying concepts of classical
information theory. The research extends description complexity theory in
order to help study the much more complex questions of quantum information
theory.

In the scheduling problem, given are the sample paths of two or more random
processes (like queues) and some condition telling when these processes
``collide''. The task is to introduce delays into each of the processes in
a way that avoids collisions. Reformulation introduces a dependent
percolation model with novel convergence properties that aroused much
interest. The principal tool of the solution is renormalization, greatly
refined. The achieved results are qualitative, leaving much quantitative
work to be done. In the application of description complexity to quantum
information theory, a universal semicomputable density matrix (``universal
probability'') is taken as a starting point, and complexity (an operator)
is defined as its negative logarithm. A number of properties of Kolmogorov
complexity and von Neumann entropy extend naturally to the new domain, and
the quantity reflects appropriately some of the peculiarities of quantum
information (no cloning). The approach taken unifies other approaches made
by several researchers in this direction.